SDCI NMI: Improvement: Production Services for the perfSONAR Framework

National Science Foundation
NSF Software Development for Cyberinfrastructure (SDCI) Program
Office of Cyberinfrastructure

Proposal # 0721902
PI name Martin Swany
Institution University of Delaware
Title “Improvement: Production Services for the perfSONAR Framework”

Abstract

The proposed project addresses development and deployment of a cyberinfrastructure system for network monitoring, measurement, reporting, and debugging that is interoperable and sharable across multiple network domains. The software system, called perfSONAR, is already an international software effort whose architecture has been adopted by the major research and education networks in the United States (Internet2 and ESNet) and abroad. This proposal addresses needs in the further development of perfSONAR to make it more viable as a deployed network monitoring and reporting system through code hardening and the addition of new features for authentication, discovery, and data exchange.